RI: Approximate Causal Decision-Making

Artificial intelligence systems are increasingly being used to assist in decision-making processes. To improve their capabilities, an intelligent agent must learn from data which actions tend to produce good outcomes. Two pervasive obstacles stand in the way. First, data are shaped by hidden factors that influenced past decisions but were never recorded. Second, the conditions under which data were gathered rarely match the conditions in which the resulting system will be deployed. Together these gaps mean that an agent can confidently recommend actions that look effective in training and testing data but perform poorly once deployed, or that fail to transfer when the surrounding environment changes. The aim of this project is to develop learning methods that explicitly account for both kinds of gaps, so that decision-making by these AI systems becomes more efficient, robust, generalizable, and interpretable.

Reinforcement learning provides a principled foundation for sequential decision-making, yet its practical adoption is limited by assumptions that rarely hold in real-world data, namely that no hidden confounding factors influence the data-collection process and that the environment remains unchanged between training and deployment. This project develops Approximate Causal Reinforcement Learning, a framework that bridges the formal assumptions required by causal inference theory with the limited structural knowledge typically available to reinforcement learning practitioners. The environment is modeled as a structural causal model, while the learner has access only to a simplified representation that captures both confounded action selection and shifts between training and deployment environments. The goals of this project are to: (1) develop methods for off-policy learning that derive reliable performance bounds for candidate policies from confounded historical data and use these bounds to guide safe policy improvement; (2) develop imitation learning algorithms that recover meaningful reward structures from confounded expert demonstrations, together with reward-shaping techniques for settings with sparse feedback; and (3) develop methods for transfer and curriculum learning that allow agents to generalize across changing environments and to accelerate learning by training on systematically simplified versions of the target task. Together, these aims will yield new identification results, provably correct algorithms, and empirical evaluations that broaden the reach of reinforcement learning to settings where standard assumptions fail.